Development of the Union College Center for Advanced Spectroscopic Techniques

This award from the Academic Research infrastructure Program will help the Department of Chemistry at Union College acquire a FT-IR spectrometer and OPO Laser System which will be used in research. The research activity to be supported includes (1) the study of the optical properties of defects and radiation induced damage processes in insulating solids; (2) non- linear and chaotic dynamics, and laboratory based astrophysical research relating to the interstellar medium; (3) the development of diode-laser-based fluorescence spectrometers, and detectors for flow injection analysis; (4) investigations of the binding of organic molecules to cyclodextrin (CD) and CD polymer (CDP) molecules; and (5) measure elastic wave velocities and thermal diffusivity of small samples of geologically interesting species. A tunable infrared laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactive and nonreactive of molecules.